REU Site: NCSA REU Site Program in Computational Science

This project will bring eight undergraduates to the National Center for Supercomputing Applications (NCSA) at the University of Illinois for a full semester of research. Recruiting is to be national in scope. The selected students will be matched with an NCSA research project in accordance with their interests and background. The disciplinary focus of the project will be computational science, with particular emphasis in the application of parallelization and visualization concepts and techniques.